Modeling and Computation of Flow-Structure Interaction in Multi-Phase and Complex Fluids

Ceniceros
The investigator and collaborators develop two classes of
modern, hybrid numerical methods to study fluid-structure
interaction for multi-phase flows in two and three dimensions.
The hybrid computational methodologies merge two sets of usually
disjoint approaches, front capturing (both through the level set
method and through phase field based models) and front tracking
(immersed boundary setting) on one hand, and moving meshes and
adaptive mesh refinements on the other, to produce an efficient
method that exploits the best features of each individual
approach. In addition, controlled adaptive front-tracking in
concert with a leading small-scales semi-implicit time
discretization is used to overcome the long-standing time
stepping problem (stiffness) associated with interfacial tension.
The blending of all these ingredients produces fully adaptive
and non-stiff hybrid methods for capturing accurately small-scale
effects, high interfacial deformations, and flow-structure
interaction in multi-phase and complex flows.
The understanding of how flow-structure interaction
influences the macroscopic behavior of multi-phase flows is of
both fundamental and practical significance. Surfactants,
viscoelastic fibers, fluid interfaces, and polymeric
microstructures and nanostructures can radically change the
behavior of a flow and ultimately determine the properties of
complex soft matter formulations. The methodologies are an
important tool to study flow-structure interaction for a wide
variety of problems of direct interest to nanotechnology, the
soft materials industry, and to some biomedical applications. The
project also serves an important education goal: the
interdisciplinary education and training of undergraduate and
graduate students.